Computers Graphics and Research: An Interdisciplinary Pre- Engineering Program for High School Students

The Computers, Graphics and Research Program (CGR) at Pennsylvania State University is designed to introduce senior high school students to the skills, research methods, ethics and careers of engineering in an intensive two-week residential program. The CGR program will offer twenty-five talented students extensive interaction with faculty, teaching assistants and residence hall counselors in both formal and informal settings. A special effort will be made to ensure participation by female and minority students. The program will be administered by the Summer Honors Academy of the University Scholars Program. In the tradition of past Summer Honors Academy programs, CGR will grant two academic credits to the participants. Follow-up activities include an option for pursuing one additional credit.